Group Travel grant to 1992 IEEE International Conference on Robotics and Automation; to be held May 11-15, in Nice, France

This is a group travel grant award for U.S. Participation in the IEEE International Conference of Robotics and Automation (ICRA) to be held in NICE, France during the period of May 11-15, 1992. traditionally held in the U.S., it has become the largest annual conference in the field with more than 20 countries participating. This will be the first time that it has been held outside of the U.S. and it is important that the U.S. remain prominent in this activity. A competitive procedure will be used to select 48 U.S. participants for partial airfare reimbursement.***//